Bioluminescence: Molecular Mechanisms and Biochemical Control in Microorganisms

The objective of this research is to understand the molecular and biochemical mechanisms of bioluminescence in bacteria and dinoflagellates, including the genes coding for the proteins involved and their evolutionary origins. In dinoflagellates, the luciferin, a tetrapyrrole probably derived from chlorophyll, is oxidized enzymatically to produce light. The mechanism of this reaction, the enzymatic intermediates, and the identity of the emitter, will be studied using proteins produced by recombinant techniques from cloned genes and synthetic substrate(s). The structures, sequences and organization of these genes will be determined, and their evolutionary origins will be investigated. In bacteria, luciferase is a flavoprotein monooxygenase which catalyzes the oxidation of aliphatic aldehydes to the corresponding acids. Luciferase-bound intermediates along with accessory "emitter" proteins will be characterized using photophysical and enzymological techniques to investigate the nature of the primary excited state and how it is formed. Possible alternative functions of luciferase, such as protection against cellular damage by oxygen radicals, will also be studied using bacteria which grow in 100% oxygen and were isolated from a human wound. %%% Although the emission of visible light by living organisms is a rare, curiosity of nature, it is also a unique tool for exploring unusual biological energetic processes. The objective of the research is to understand the molecular and biochemical mechanisms of bioluminescence, and to examine the control and evolutionary origin of the genes involved. We will principally use simple marine unicellular organisms in this study; bacteria and dinoflagellates. The bacteria emit blue-green light. These cells often live in association with higher organisms in the gut tract or in specialized light emitting organs. Dinoflagellates have a very different bioluminescence system which seems to have evolved independently, and makes use of a substance related to chlorophyll. The dinoflagellates are responsible for the blooms (called red tides) in the ocean, where they produce potent neurotoxins which accumulate in the shellfish that ingest them, thus making the shellfish poisonous for man. The phosphorescence of the ocean seen at night is also due to dinoflagellate bioluminescence. Our studies are learn about the biochemistry for this peculiar light emission reaction.